Mathematical Sciences: Combinatorial Set Theory

Galvin plans to continue his investigations in various areas of combinatorial set theory, including the partition calculus, the theory of set-theoretic and combinatorial games, and the structure of closure functions.